Polymer Engineering Laboratory Improvement Program

This project introduces a state-of-the-art laboratory experience to students whose concentration is in Polymer Engineering. The laboratory equipment (Differential Scanning Calorimeter/Thermogravimetric Analyzer), permits students to study and analyze polymer products that have recently been developed. This award is being matched by an equal sum from the grantee.